Birational Geometry and Hodge Theory

The project will be broken into various subprojects in algebraic
geometry. In the first subproject, Arapura intends to study vanishing
theorems, which are very roughly a collection of techniques for
controlling homological invariants. In the second subproject, Arapura
intends to study some problems related to the Hodge conjecture, which
predicts that certain homological entities called Hodge classes can be
realized in a geometric way. In the fifth subproject, Matsuki plans to
study the homological aspects of the minimal model program, and also
to study the automorphisms of the three dimensional space. Several
subproject involve finding good models, or resolutions, for varieties
and maps between them. For maps this can be formulated more precisely
as the toroidalization problem, and this will be studied by Matsuki in
the fourth subproject. Finding good models for a variety amounts to
resolution of singularities. Various aspects of the problem will be
studied by Matsuki and Wlodarczyk in the seventh subproject. In
particular, Wlodarczyk has found a simplified algorithm for
resolutions of singularities in characteristic zero, which he plans to
refine. In the eighth project, Wlodarczyk will further develop his
theory of stratified toroidal varieties, which extends the theory of
toroidal embeddings.

Algebraic varieties are basic objects in mathematics; they are sets of
solutions of systems of algebraic equations. They have found
applications in areas as diverse as mathematical physics and
cryptography. The goal of this project is to further the understanding
of these objects. A standard technique involves expressing the objects
by their homological invariants, which are usually more accessible and
often computable. Some of the subproject involve this approach. The
remaining subproject involves finding good models for algebraic
varieties.